The Mechanism of Action of Hydrolytic Metalloenxymes

The effects of metal ions on the hydrolysis of a series of carboxyl substituted esters and amides will be studies to allow a chemical assessment of the mechanistic possibilities for the metalloenzyme carboxypeptidase A. In this work all the currently recognized will be investigated in systems of know mechanism so that a quantitative evaluation may be made of the effects on the rate constants of: 1\0 the identity of the metal ion, 2\0 the strength of binding of the metal ion to either the carbonyl oxygen or the leaving group, 3) the pka of the leaving group, and 4) the stearic fit of the carboxyl group. In conjunction with the chemical work a kinetic investigation of carboxypeptidase A will be carried out employing new types of substrates with which the leaving group can be varied. Conformational effects will be investigated in stopped-flow studies and in inhibition studies. The later experiments will give information on the nature of the sites in which esters, peptides, and inhibiting the enzyme, because these techniques have proven successful in other systems and because of her experience in protein work, funding is recommended.